An Explanatory Model of Jury Verdicts in Medical MalpracticeCases

To enhance our understanding of dispute transformation and the civil litigation system more generally, systematic study of civil jury verdicts is needed. Much criticism of the civil justice system is based on presumptions about the nature and causes of patterns of jury verdicts, especially the sizes of awards in particular types of cases such as medical malpractice cases and products liability cases. By devising and evaluating, both cross-sectionally and longitudinally, a multivariate ecological model using data from 48 counties in ll states for the early 1980s, Drs. Andrews and Daniels' empirical study develops an explanation of patterns of actual outcomes in medical malpractice jury cases through the aggregate analysis of awards. Their contribution to understanding what decisions are made by juries and why is important beyond the numbers of jury cases because jury verdicts are very influential in determining the outcomes of the majority of civil lawsuits handled through more informal processes.